Dissertation Research: Cultural Variation and Ethnic Identity in Nepal

This dissertation research project will study the construction of an ethnic identity by an aboriginal group in Nepal. A cultural anthropologist will conduct participant observation and survey interviews in several villages in rural Nepal. The hypothesis to be examined is that the settlement of aboriginal lands by different groups and the general impoverishment of the aboriginal group has strengthened the common ethnic identity of the aboriginal groups. This research is important because different ethnic groups interact in all countries of the world. Increased understanding of the conditions under which a group's ethnicity is strengthened or weakened will help us understand the basis for ethnicity-based claims for special treatment in any society.